Mathematical Sciences Computing Research Environments

The Department of Mathematics and Computer Science at San Jose State University will purchase Sun 10 workstations which will be dedicated machines in support of research in the mathematical sciences. The equipment will be used for research projects in algebra, in particular group theory and number theory.